INCREASING MINORITY ACCESS TO CAREER IN INFORMAL SCIENCE...

This program will provide funding to employ and train a total of 61 minority participants, who will enter into one of three different program categories. The first category will be for 11 young professionals - minority individuals who have both special needs and abilities. Their needs are for continued specialized training to facilitate career advancement and they would, as would the other two classes of interns, benefit greatly from the establishment of a support network encompassing other minority individuals interested in careers in science museums. They also have unique abilities, stemming from their prior experience in science centers or other science-related institutions, that will allow them to serve as models for participants in the other two categories in the program. Their component of the program will span two full years. The second program category is for 10 post-baccalaureate minority individuals who are just entering the job market and who, with the proper training and support, are likely to pursue a career in science museums. They will participate in an 18 month program that will provide them with both specific career skills as well as an overall introduction to careers in the museum context. The third program category will provide half-time internships for two cohorts of 20 minority individuals who are currently enrolled in college. Each cohort will participate. The total cost of the project is $2,041,485.00. The National Science Foundation is asked to provide $1,051,298.00 and the members of the consortium will fund $990,187.00. The cost to the National Science Foundation, approximately fifty percent of the project cost, is about $8600.00 per minority participant per year.